University of Wisconsin-Milwaukee Young Scholars Project

Twenty 9th grade students will be recruited from the midwest for the University of Wisconsin, Milwaukee (WWM)/Milwaukee Public Museum Young Scholars Program. They will participate in a six-week summer program made up of one-on-one laboratory training and project development; classes in scientific ethics, problem solving, and career exploration; orientation and participation in museum science; and field trips to industrial, medical, and university laboratories and research sites. Follow-up activities during the school year and subsequent summer are also part of the project. Key components of the UWM Young Scholars Program are: (1) the joint participation of the Milwaukee City Museum in presenting this program; (2) the commitment of ten key research faculty from UWM and five from the Museum to participate as faculty mentors in the Young Scholars Program; and (3) the availability of continuing research activities for the young scholars in subsequent summers through the university's high school apprenticeship programs and local industrial internships.